U.S.-China Workshop: Strategic Management of Technology and Innovation

Li
0224602

This workshop award supports fifteen American researchers in technical innovation to meet with leading Chinese researchers in technical innovation on the occasion of the Third International Symposium on Management of Technology, Hangzhou, China, October 2002. The U.S. and Chinese researchers will exchange information and explore opportunities for collaborative research in an area of research, namely technical innovation, that has been identified by NSF and the National Natural Science Foundation of China together as a key area of policy discussion and joint research during the first decade of the 21st century. Members of the U.S. and Chinese teams have participated in two NSF-NSFC sponsored policy dialogues. This bilateral workshop extends to discussions toward greater research collaboration.